Parallel Processing for the Steady State Solutions of Large-Scale Nonlinear Models of Power Systems

This research is involved with parallel algorithms for solving for the roots of large-scale algebraic polynomial and certain general nonlinear systems. These algorithms will be developed based on the so-called probability-one homotopy method and they world guarantee finding all the roots. Particularly, the algorithm techniques are to be applied to obtain all steady state solutions of the load flow problem for practical large-scale power systems. A special probability-one homotopy method will be tailored for the load flow to reduce the computational complexity while still guaranteeing the finding of all solutions computationally. A simpler load flow model will be identified and employed first. Then its solutions will be used in order to efficiently obtain the solutions of the full load flow model. More importantly and practically, numerical implementation of the solution techniques will exploit inherent parallelism in the techniques to be efficiently executed on massively parallel distributed-memory multiprocessors. This constitutes the first phase of the proposed research. The second phase of this research project is concerned with local stability and the possible bifurcation of the solutions to the load flow as well as their role and impact on the dynamic behavior of power networks.